Studies of High-Tc and Buckminsterfullerene Superconductors Under High Hydrostatic Pressure

9509885 Schilling This project will search for oxygen ordering in High-Tc oxide superconductors in order to determine the essential structural and cation characteristics responsible for the ordering. Temperature dependent oxygen relaxation phenomena will also be examined in detail. An objective is to establish any link between these phenomena and photo-induced superconductivity. The functional dependence of the superconductor transition temperature and the electronic density of state in fullerene superconductors such as K3C60 and Ru3C60 will also be investigated. The project will focus on the pressure dependence of the transition temperatures as well as the Pauli spin susceptibility. This project is devoted to a fundamental study of superconductivity, however, the results may be of technical interest in the context of pressure effects on high-Tc and related materials. %%% In a typical high-temperature superconductor, approximately half of the constituent atoms are oxygen. These atoms, via there arrangement in the crystal lattice, sensitively influence the temperature at which a material becomes a superconductor. This project is devoted to the study of the oxygen atoms, and their ordering (arrangement) in the high-Tc materials lattice. The materials will be studied as a function of both temperature and pressure (these are important thermodynamic variables for the high-Tc materials). The methods will also be applied to another interesting superconductor material: "fullerenes", which contain potassium or rubidium. The experiments, which probe how the conducting properties of the materials vary with temperature and pressure, will yield information that will be of considerable interest to theorists. The project is of a fundamental nature, but may have technical relevance if it leads to new routes to higher temperature superconductors. ***